Mathematical Analysis of Parametrically Excited Hamiltonian Systems with Applications in Quantum Physics, Nonlinear Optics and Wave Propagation in Random Media

The PI will study the long time behavior of solutions of
dispersive partial differential equations under time dependent
perturbations. The focus will be on the Linear and Nonlinear Schroedinger
Equation in the regimes in which it supports bound states (periodic
in time, localized in space solutions). The perturbation is expected to
redistribute the energy among the bound state and transfer part of it to
radiation. A rigorous description of this process will be sought. For this
purpose the PI will develop novel mathematical techniques for studying the
evolution of both the radiation field and the bound states. The tools are
expected to generalize to other dispersive equations like Klein-Gordon,
Sine-Gordon and Korteweg - de Vries.

The Schroedinger Equation is a well established model for a variety of
physical phenomena and engineering processes. For example, dispersion
managed optical fibers used in high bit rate telecommunications consist of
concatenated pieces of fiber with different material properties. As the
light pulses pass through them they suffer two main transformations. On
one hand they are kept from spreading out which is desirable. On the other
hand they loose energy to radiation. Striking the right balance between
the two effects is a design problem to which the PI plans to contribute.
The second example is related to the new ideas on generating matter waves
out of particles in a special phase (Bose-Einstein Condensates) by
controlled variation of their environment. The stability and long time
behavior of these waves is not well understood and will be investigated in
the project. The third example concerns radar detection through
fluctuating media. On one hand, due to the random fluctuations, the signal
reflected by the target that reaches the detector tends to contain more
information compared to a signal that propagates through a stationary
medium. On the other hand, the same fluctuations tend to radiate out of
the environment both the direct and reflected signal. A better qualitative
and quantitative understanding of the second phenomena is one of the goals
of this project.